SBIR Phase I: Nanolaminate Structural Composites

9860273
This Small Business Innovation Research Phase I project proposes a nanostructural fabrication process for the production of high strength, lightweight metal-polymer nanolaminate materials. A patented ultra high
speed polymer deposition process allows the formation of large area laminates with thousands of nanosize
metal and polymer layers. The polymer materials have high thermal and mechanical stability, and the metal
layers can be any of several materials, including Al, Ti, Ni, steel and SS. The proposed investigation will
systematically explore the limits of this new process with particular focus on the mechanical material
properties. In the Phase I work, lightweight materials such as Al will be processed into nanolaminate
composites and the effects of metal layer thickness and metal/polymer thickness ratio will be compared to
basic bulk material properties. The Phase II work will seek further optimization and in-depth testing of
materials for specific industrial applications.
High strength, lightweight polymer-metal multi-layer composites may have a range of applications that
includes lightweight structural component for industrial, civil, and aeronautical applications, automotive
parts and electrical and electronic applications.